Presidental Young Investigator Award

Transmitter receptors exist as multiple receptor subtypes with different binding affinities and different cellular and physiological responses to the same transmitter. The expression and sensitivity of these receptor subtypes can be independently regulated. Such multiplicity of receptor subtypes enables a single transmitter to play a variety of physiological roles in the same tissue. The investigator is employing molecular genetic, biochemical and electrophysiological methods to analyze and manipulate cloned serotonin receptor genes to determine how these receptors bind specific ligands and interact with other cellular proteins. This award will enable the investigator to isolate novel serotonin receptors and to characterize the cellular responses they elicit as well as to determine which cells in the rat brain express them. In addition, the regions of serotonin receptors responsible for ligand binding, ligand.induced conformational changes in receptor structure, and G protein interaction will be determined using mutational techniques. Differences in the second messenger systems activated by different serotonin receptor subtypes will also be explored.